Research Initiation Award: Microscopic Studies of Interfacial Transport Processes in the Dendritic Mushy Zone

CTS-9308841 Drexel University Xiaowei S. He ABSTRACT Mechanical properties of structural materials often depends on the processes occuring during solidification. Modeling solidification is difficult because phenomena in the mushy zone occur over many different length and time scales. The relationships between dendritic microstructure and macroscopic transport will be investigated with cellular automaton simulation of flow, temperature and concentration fields at the microscopic level. Results for the microstructure model can be coupled to macroscopic phenomena by statistical analysis. Better understanding of the underlying processes involved during solidification should lead to less waste and increased efficiency during production of many solid materials, making American industry more competitive.